CDS&E: Collaborative Research: Data-Driven Agentic AI for Trustworthy Design of Autonomous Engineered Systems

This Computational and Data-Enabled Science and Engineering (CDS&E) project will advance national prosperity and workforce development by transforming multidisciplinary design optimization through the development of data-driven agentic artificial intelligence approaches. The tools developed in this project will substantially reduce time and cost and improve the efficiency of engineered systems. Many systems, such as floating offshore platforms, aircraft, additive manufacturing, and marine robots, are multidisciplinary, involving interactions across multiple physics domains, inducing design and performance tradeoffs. For instance, an automotive vehicle designed for safety alone is likely to have poor fuel efficiency, and vice versa. Accounting for inter-disciplinary tradeoffs, however, poses several challenges in the mathematics and computation involved in the design methodologies. Overcoming these challenges with novel, principled, and scalable computational and data-enabled solutions that advance the state of the art and train the next generation workforce in engineering design is the goal of this project.

The central mathematical bottleneck of multidisciplinary design approaches is a nested fixed-point iteration that must be repeatedly solved. This project will overcome that with a novel level set-based approach leveraging probabilistic kernel-based methods from machine learning. Leveraging Bayesian decision theory, the probabilistic models will be adaptively improved via novel information-theoretic acquisition policies, thereby substantially reducing computational costs. The second challenge is coupling disparate computer codes available as oracles without exposing derivative information. To address this, this project will develop a large language model-based agent that translates structured engineering intent into verified coupled simulation workflows, with checks for units, variable shapes, mesh transfers, and inter-disciplinary consistency. The methods will be evaluated on a prototype floating offshore system that serves as a docking and recharging station for autonomous underwater vehicles. The foundational science developed in this project will be packaged into a microcredential course for engineers already in the workforce, and graduate courses at Penn State and the University of Michigan.